Political-Economic Equilibrium

Recent developments in politics and economics focus attention on how outcomes are determined by the interaction between institutional structure and individual preferences. The projects will endogenize the institutional structure by considering the case in which multiple institutions compete for members. Examples include the interaction between the membership and platforms of political parties and the interaction between towns' inhabitants and their provision of local public goods. At an abstract level, institutions take positions based on their membership, while individuals join institutions based on their preferences. There is a fundamental interaction between individual preferences, institutional decision-making processes, memberships, and outcomes. In a political economic equilibrium, no individual wants to change institutional affiliation and each institution's position is consistent with its membership. This research begins with the question of whether an equilibrium exists. To answer this apparently simple question requires highly sophisticated reasoning. Conditions for existence will be derived and the potential for non- existence will be shown. The goal of the research is to improve our understanding of the influence of mobility among competing institutions in determining political and economic outcomes.